REU: The Chronology of the Eocene-Oligocene Structural and Stratigraphic Development of the Catalon Coast Range, NE Spain

This study will extend earlier work on time control of the major deformation and syntectonic deposition events on the southern flank of the Pyrenees. Active shortening occurred on the southern margin of the Ebro basin at the same time as strike-slip faulting occurred along the Catalan Coast Range transpressional margin. This project will investigate the timing of the deformation and the amount of rotational strain along the Catalan Coast Range by dating a series of fan-deltas, and will relate the findings to deformation in the Pyrenees to the north. The fan deltas will also be studied for contrasts in size, position along the range front, source area(s) and syntectonic sedimentation characteristics. The results of this study will allow the relative roles of tectonism and sediment supply to be evaluated for these foreland basins, and will have significance for foreland basin development in other orogenic belts.